IEEE DySPAN 2012 Student Travel Grants

Approximately 25 U.S. graduate students will receive travel grants to attend the IEEE DySPAN conference, a leading conference on Dynamic Spectrum Access and Cognitive Radio. The conference takes place October 16-19 in Bellevue, Washington. Participants have the opportunity to present their work, attend panel and keynote sessions, participate and attend demos, and interact with hundreds of other leading researchers in the field.